Cutaneous Integration in Spinal Sensory-Motor Networks

9308804 Currie Selection of particular motor patterns is a complex process that depends on the integration of sensory information with information about internal state. Both spatial and temporal integration of information by specialized interneurons is required for appropriate pattern selection. This NSF award to a new young investigator is to establish a novel model system for the study of this phenomenon. The behavior involved is a particular form of the scratch reflex in which a brief stimulus sets up a pattern of excitation that far outlasts the stimulus. Dr. Currie will investigate the pharmacological and physiological mechanisms that spinal interneurons use to "remember" the stimulus. For these experiments he will utilize a newly developed enzyme-treated carbon-fiber microelectrode that can detect the release of the neurotransmitter glutamate with exquisite temporal (millisecond) resolution. The results of these investigations will aid in our understanding of human motor control and spinal cord function. ***